Biodiversity and Ecosystem Informatics - BDEI -Bioinformatic Prediction of Functions of Unculturable Microbes in Ecosystems

EIA-0131899
Dickerson, Allan
Virginia Polytechnic Institute and State University

SUMMARY

Cells routinely perform complex computational tasks that enable them to control the orchestration
of thousands of genes and communicate with other cells to manifest emergent properties such as growth
and differentiation.Understanding and engineering the algorithms underlying the complex computational
machinery of cells should have significant impact in science and technology,particularly biotechnology,
biocomputation and medicine.

Several notable recent reports demonstrate that it is possible to design and construct simple de
novo genetic circuits such as a switch and an oscillator in Escherichia coli .This work also revealed that
implementation of even the most simple circuits in vivo requires tedious optimization of often poorly-
understood protein-DNA interactions and mRNA and protein stabilities,among other parameters.We
propose to develop efficient,evolutionary design strategies for constructing functional de novo genetic
circuits.We will apply methods of molecular evolution,which have proven highly successful for
engineering proteins with improved or altered properties,to complex genetic systems involving multiple
repressors,operators,and promoters.We believe that evolution will prove to be generally applicable for
optimizing individual devices as well as complex genetic circuits,and our goal will be to demonstrate
how evolutionary searches are best performed in order to build libraries of devices and assemble them
into functional circuits.